Crystallographic Studies on Heme Containing Enzymes

The long term goal of this project is to determine the crystals structures of heme containing enzymes. The main tools to be employed this work are those of protein x-ray crystallography. The project focuses on the crystal structure determination of lignin peroxidase (or ligninase) and mutant forms of cytochrome c peroxidase. %%% This new structural information is expected to broaden our data base on two fundamental mechanistic questions: first, the mechanism by which heme enzymes activate molecular oxygen and/or hydroperoxides; and second, the mechanism by which electrons transfer between proteins in intermolecular complexes.